SGER: Experiments on Integrating Speech Recognition and Natural Language Processing

*** This project addresses the integration of speech recognition and natural language processing components in a speech understanding system. Most current speech recognizers use word-level hidden Markov models (HMMs)in conjunction with n-gram language models. Additional flexibility can be achieved by using phones as the basic recognition unit. This research proposes a new technique called a SOHMM Stochastic Observation Hidden Markov Model - for recognizing words from phone candidates. Most current spoken language systems use probabilistic language models to model syntactic and semantic patterns. This project will integrate a SOHMM- based speech recognizer with a Constraint-Dependency Grammar (CDG) parser, which supports the use of lexical, prosodic, syntactic, and semantic knowledge sources in a uniform modular framework, as well as the use of domain- specific constraints. This work will refine the model for the SOHMM-CDG spoken language processing system and address the problem of building and pruning word graphs, which act as the interface between the two components. An experiment will be conducted to demonstrate the effectiveness of the integrated system for recognizing and parsing utterances in the TIMIT and Resource Management corpora. Sentence accuracy should be significantly improved over what is possible using only statistical language models, especially when domain-specific constraints are used ***.